Mathematical Sciences: Moduli Spaces of Riemann Surfaces

Robert Penner will study decorated Teichmuller theory in several directions, as follows. Integrals of monomials of Miller- Morita-Mumford classes over the moduli space of Riemann surfaces should be computable using intersection theory on an appropriate V- manifold compactification of moduli space; in particular, all the necessary ingredients seem to be in place for applying this scheme to the computation of Weil-Petersson volumes for once-punctured surfaces. There is also a "universal" analog of the decorated Teichmuller space, and essentially all of the classical structures extend to this setting; he hopes the study of this universal space will shed light on the classical theory. He furthermore hopes to compute the complex structure of moduli in his coordinates. Computer work will be pursued to derive the combinatorial structure of the moduli space of once-punctured surfaces of genus three, and he hopes explicitly to compute the homology of this spaces. Finally, a program has evolved for extending some of his work to the setting of closed surfaces. Teichmuller theory is a seventy year-old blend of algebraic geometry, differential geometry, and topology. As such, advances will interest a broad spectrum of mathematicians. Some also have a bearing on string theory, so some theoretical physicists have a stake in this research as well.